NSF-BSF: Molding a Better Future: Filamentous Fungi for Circular Biomanufacturing of Growth Factors

Growth factors (GFs) are proteins with therapeutic uses including cell proliferation, wound healing, and tissue differentiation. GFs are currently produced in mammalian cell cultures. These cells require expensive nutrient-rich media and costly downstream purification. Filamentous fungi (molds) can produce proteins while growing in a simple medium. They can also efficiently secrete proteins, which reduces the cost of GF purification. These capabilities make them candidates for producing growth factors. However, the production in fungi of foreign proteins is challenging and often suffers from low yields. This project will use AI-derived tools to uncover the genetic mechanisms that control protein production in fungi grown on agro-industrial side streams. Knowledge of these mechanisms will be used to enhance the production and secretion of growth factors from fungi. Findings will be disseminated to K–12 students and the general public, highlighting filamentous fungi as efficient cell factories in the circular bioeconomy.

Expensive growth media and complex downstream purification currently account for 50–90% of total production costs. This project will develop the edible filamentous fungus Aspergillus oryzae into an advanced biomanufacturing host capable of producing GFs directly from agro-industrial waste. The project will focus on producing two model growth factors with distinct structural complexities: insulin-like growth factor 1 (IGF-1) and platelet-derived growth factor subunit B (PDGF-B). Beyond food applications, these growth factors are essential therapeutic proteins widely used in regenerative medicine for tissue development and cell repair. First, transcriptomic and proteomic data will be collected from A. oryzae grown on various side streams, such as wheat bran and apple pomace. These data will be used to train AI models to infer evolutionarily favored transcript patterns and identify side stream-specific protease knockouts. Simultaneously, orthogonal synthetic transcription factors will be engineered to synchronize growth factor production with the completion of waste degradation. This would alleviate the burden of protein expression without compromising the host’s decomposing capabilities. Finally, the best-performing engineered strains will be evaluated and scaled up in 30-L bioreactors to demonstrate industrial feasibility. The robust fungal expression platform and an expanded suite of synthetic biology tools will enable the conversion of low-value agricultural byproducts into high-value recombinant proteins This will significantly strengthen the supply chain. In addition, the newly established rules for fungal codon usage and gene regulation, along with the synthetic tools and collected omics datasets, will be made publicly available for the benefit of the fungal biotechnology and broader scientific community.